A Record of River Discharge from the Orinoco in Coral Skeletons

Drs. Swart and Brass will evaluate the record of discharge fromthe Orinoco River encoded in certain corals of the SE Caribbean. They will collect coral heads by SCUBA and with slab samplesanalyze growth bands for fluore scence and oxygen isotopiccomposition. Records spanning the last 30 to 40 years from aprofile of corals growing in 1 to >10 m water depth off Tobagowill provide the "proximal" discharge history nearest the mouthof the Orinoco. Surface-dwelling corals from other locations asdistant as Puerto Rico will provide records of the temporal andgeographic extent of any low-salinity cap across the SE Caribbeanthroughout this same 30-to40-yrs period. Once determined, theOrinoco discharge record will be compared to the Quelccaya icecore record from the Andes and to El Nino patterns to assess howthe river record is affected by regional climatic variations.